REG: Laser Doppler Vibrometer and Dynamic Signal Analyzer for Bearing Dynamics Research

9500265 Messner Matching funds will support the acquisition of a laser doppler vibrometer with signal analyzer to be used in research on the nonlinear dynamics of rotary bearings for very rapid, high-precision positioning and tracking systems typical of hard disk magnetic storage systems, optical pointing systems, and semiconductor manufacturing. ***